An Improved Method of Microbial Cell Disruption

Narrative: Disruption of the cell envelope is one of the first steps in the recovery of materials contained within microbial cells. Conventional techniques typically involve high shear, heat generation, and multiple stage processing, all factors which can lead to degradation of the desired product. Furthermore, these techniques often lead to the creation of small cell wall fragments which adds to the burden of downstream purification. The present proposal suggests a method of cell disruption which may avoid these difficulties, improve product yields, and prove more economical as well. The method, a modified form of explosive decompression, is based on the large specific volume changes which may be rapidly effected upon depressurization of a supercritical fluid or low-boiling liquid. Any process requiring microbial cell disruption may benefit significantly from the proposed explosive disruption method.